Micromechanical and Computational Studies on Certain Colloidal Phenomena and Fluctuation Processes (ROW)

Narrative: This project for a "Career Advancement Award" deals with micromechanical and computational studies on certain colloidal phenomena and fluctuation processes for the following objectives: (i) to broaden the current research activities of the PI in studies on concentrated colloidal dispersions that also include studies on stability and structural transitions for certain classes of practically-important dispersions; (ii) to develop some novel computer experiment procedures needed in the above context and to initiate the necessary supercomputing programs; and (iii) to explore the application of these techniques to nonaqueous and sterically-stabilized dispersions in order to establish University/Industry collaborative links. In addition, the project includes efforts aimed at modifying the techniques or procedures which are developed under the above initiatives to study permeation of ionic and other species through membranes.